NSF Minority Postdoctoral Research Fellowship for FY 1998

This action funds an NSF Minority Postdoctoral Research Fellowship for 1998. This fellowship supports research and training in the area of animal behavior and population biology. The research and training plan is entitled ecological and genetic dissection of social behavior in the mound building mouse. A breeding colony of Mus spicilegus is being established to make it possible to study the inheritance of behavior in this and related species. Field work is being conducted to study the ecological and social components of the behaviors under study.